ENGINEERING RESEARCH EQUIPMENT: Equipment Dedicated to Research in the Engineering of Hybrid Optoelectronic Devices and Components

The purchase of this equipment will be dedicated to the research in the engineering of hybrid optoelectronic components for insertion into 3D optical image processing architectures. Three integrated research projects will utilize the research equipment to realize a compact, high throughput optical image processing module, based on the Hughes 3D computer architecture. This electronic processor consists of stacks of silicon wafers interconnected through ohmic contacts. Power dissipation limits the processing speed. The PI proposes to replace the electronic contacts with power efficient VLSI-based optical interconnects. Fabrication of VLSI optical interconnect devices and their alignment into multi-chip modules are crucial technologies for increasing the computational power of 3D computers. Equipment to be purchased under this research project includes computer workstations, a source generator and spectrum analyzer for the design, layout and testing of VLSI devices. Optical interconnections are realized by filling the VLSI chips with electro-optic materials. Equipment required to accomplish this task includes vacuum ovens, hotplates, temperature controllers, vacuum spinner and water purification system. Aligning the optical interconnect devices into multi-chip modules requires vacuum evaporators and a fluxless solder reflow unit. Testing the multi-chip modules for insertion into the Hughes 3D computer architecture requires a visible laser, associated optical hardware, floatation table and legs.